Idaho MARS: Mathematics Assessment and Restructuring System

This planning grant will lead to a proposal from the University of Idaho to extend a successful model for science to mathematics education. The Mathematics Assessment and Restructuring System (MARS) will design and validate an instrument to systematically work in individual schools to help improve K-12 mathematics education. Using members of the Idaho Mathematics Coalition, the project will develop an assessment instrument appropriate to different schools across the state. A process of development, planning meetings, and validation of the instrument will be used. The grant is for 6 months and includes 162% cost sharing. //